Recovery of Viewer-Centered and Object-Centered Depth from 2-D Projections

The visual environment is three-dimensional, but our information about it is based on two-dimensional retinal projections. This research will investigate two types of processes for recovering three-dimensional relationships from two-dimensional images. The first type of process recovers distances from the eye to features in the environment. The research will examine two examples of this type of process: stereoscopic vision and motion parallax (the perception that objects moving faster in the retinal projection are closer to the eye). The second type of process recovers three-dimensional relationships among objects in the environment independently of distances from the eye. "Structure- from-motion" is the example of this type of process that will be considered. Perceptions based on structure-from-motion recover three-dimensional relationships among objects directly from the relative motions of the objects, assuming only that the objects are moving rigidly or at constant speeds. Information about three-dimensional distances from the eye and information about three-dimensional relationships among objects must be integrated to provide a complete perception of the three-dimensional environment. Preliminary research has shown that structure- from-motion facilitates the use of stereoscopic information. A series of five experiments will examine the basis for this facilitation. Preliminary observations have also indicated that similar relative motions projected at the eye may lead to different three-dimensional perceptions, depending on whether a motion parallax analysis (projected velocities based on distance from the eye) or a structure-from-motion analysis (velocities based only on relationships among objects) is applied by the observer. Three experiments will examine the conditions that determine which of these alternative interpretations is applied by human observers. An understanding of how different types of information for perceiving three-dimensional relationships from two-dimensional images are combined has relevance to such questions as: Can people lacking stereoscopic vision when tested with static displays demonstrate stereoscopic ability when motion is added to the displays, and how should the three-dimensional environment be represented in artificial displays requiring accurate observer responses, such as flight simulator displays and aircraft displays that represent the virtual environment?